Rising to the Challenge: Equity 2000

This project will implement intensive teacher training enhancement for approximately 2,400 mathematics teachers of pre- algebra, algebra, and geometry for eighth, ninth and tenth grade students. The teacher training activities, sponsored by a partnership between the College Board and the National Science Foundation, will take place at six sites in the United States: Fort Worth, Texas; Providence, Rhode Island; Nashville, Tennessee; Prince George's County, Maryland; Milwaukee, Wisconsin; and San Jose, California. The NSF-funded component of the partnership will involve more than 200,000 students and will involve teachers of these students in a series of four-week summer institutes. These teacher-oriented institutes will be followed by workshops and seminars in the academic year subsequent to the respective summer programs. The partners in this venture will offer new and innovative mathematics curricula for students that focus on educational equity and design intensive institutes and workshops for teachers to transmit the new curricula. The principal investigator of this project is well-qualified academically and has wide experiences in managing projects of this nature.